SBIR Phase I: Ultra-miniature in vivo pressure and temperature transducer

This Small Business Innovation Research (SBIR) Phase I research project aims to develop a fiber optic miniature pressure sensor for use in medical applications, including measurements of pressure inside the coronary arteries, the eye, the cranium and spinal cord.

The ability to measure pressure inside various fluid parts and compartments of the body would enable physicians to expand their repertoire of tools for diagnosis and assessment of the effectiveness of treatments. Moreover, an ultra-small pressure sensor may be of great value to researchers using rodent models, and may have applications in areas outside of medicine as well.